Molecular Paleoecology of Permafrost Mammals

The Arctic is well known as a unique scientific resource for biology
because it contains exceptional records of past climatic fluctuations and
the concomitant interactions between biota and an extreme environment.
Preliminary research has shown that the bones from animals from the
permafrost contain a further important record of global change - a genetic
record, detailing faunal evolution through the Late Pleistocene.
Preliminary studies reveal that ancient DNA techniques and the polymerase
chain reaction (PCR) can be used to recover, amplify, and sequence
mitochondrial DNA (mtDNA) of up to 600 base pairs (bp) in length from a
variety of permafrost specimens from extensive deposits near Dawson, Yukon
Territories and Fairbanks, Alaska. These permafrost deposits date from 20
to 50 thousand years ago and contain thousands of bones from previous
inhabitants of the area, making this resource a national treasure,
comprising the largest collection of Pleistocene genetic information in the
world. In addition to testing long-standing systematic issues, DNA from
these bones can be used to examine the consequences of past environmental
changes, such as the opening of the Bering land bridge, and climate and
anthropogenic effects on population genetics.

Permafrost DNA will be used to examine several questions concerning the
effects of Late Pleistocene ecology on the genetics of modern populations,
and how the effects of current environmental change and biological
introductions compare with that of the recent past. Mitochondrial control
region and cytochrome b DNA sequences of approximately 200-300 bp will be
sequenced from about 20 specimens each of wolf (Canis lupus), moose (Alces
gigas) and elk (Cervus elaphus) to examine how genetic diversity has
changed since the Late Pleistocene. All three taxa have fossil records of
more than several thousand years in North America, yet the genetic
diversity of modern North American populations is sufficiently limited that
recent bottlenecks appear to have occurred. These results will be
contrasted with those from analyses of the caribou (Rangifer tarandus) and
the brown bear (Ursus arctos), which also have a long record in North
America but have moderate amounts of genetic diversity in modern
populations, perhaps due to large population sizes throughout the Late
Pleistocene.

As well as examining changes in genetic diversity through time, the
permafrost DNA will be used to assess the relationship of Late Pleistocene
populations to their modern counterparts. We will distinguish among four
possible alternatives: 1) extant populations have DNA sequences that are
phylogenetically distinct from those in the Old World and are directly
related to those from Late Pleistocene North American predecessors. This
result implies genetic continuity and continental isolation throughout the
Late Pleistocene and that modern populations survived recent glacial
conditions and megafaunal extinction events in relative isolation; 2) DNA
sequences of modern populations do not share a common ancestry with those
in the permafrost implying that North American lineages went extinct
sometime in the past 18,000 years and were replaced by those of an Old
World ancestry existing in Beringia; 3) modern populations have a mixture
of DNA haplotypes that are related to those from the Late Pleistocene of
North America and the Old World implying recent admixture between Old and
New World populations; and 4) both modern and permafrost populations have a
mixture of DNA haplotypes of Old and New World ancestry implying a history
of continental mixing over the Late Pleistocene.

Ancient DNA research has promised to allow evolutionary change to
be observed through real time but has been constrained by the number of
samples and time frame that it has been possible to analyse. This project
will fulfil that potential since it permits genetic change to be recorded
in two large, well sampled natural populations (Fairbanks and Dawson) over
a time frame of tens of thousands of years. It will also lead to a better
understanding of the factors involved in molecular preservation under
permafrost conditions, and suitable storage and handling regimes for
specimens uncovered by current mining operations. No organized collecting
program currently exists for this valuable resource, and each year hundreds
of specimens from this genetic museum are simply washed away downstream